Improving Student Learning through the use of 3D Simulation Activities and Case Studies in Multimedia Programming

Computer Science (31)

This project is adapting and implementing exemplary materials and strategies from the National Center for Case Study Teaching in Science at SUNY Buffalo (developing case studies for real-world multimedia projects), St. Joseph's University (PA) (adapting the Alice programming system for multimedia topics), Wake Forest University (for networked multimedia studies), and Lehman College (CUNY) (as a source for upper-division studies) to develop three gateway courses in its Multimedia Program. This two-year project is ensuring that the graduates from this program are prepared for their studies when they transfer to four-year colleges. The project is also establishing a Multimedia Student Access Computer Lab that will serve no fewer than 290 Multimedia Programming majors annually. A further aspect of the project lies in implementing a comprehensive faculty development program that will ensure integration of the proposed courseware in the curriculum.